Alleghenian Episode of Basin-Wide Illitization in the Appalachians - A Test of Fluid Expulsion Hypothesis

The illitization of smectite during diagenesis and burial metamorphism is a major aspect of shale petrology; K/Ar dating has elucidated the process. Bentonites simplify the study because they are free of detrital illite/smectite. Recent research shows that Ordovician bentonites throughout the southern half of the Applachian basin underwent illitization to potassium (K)- bentonites during a relatively short episode 300-265 m.y. ago in the upper Pennslyvania- lower Permian, corresponding to the Alleghenian Orogeny. Some of the K-bentonites are in close association with Mississippi Valley Type (MVT) zinc deposits. Basin-wide illitization may be attributed to explusion of edge of the foreland basin during Blue Ridge overthrusting, a novel hypothesis that is receiving support from diverse observations by many researchers. If true, the explusion of hot waters to the distal edges of the basin as of mega-importance to the secondary history of such sedimentary basins, as outlined in the speculative hypothesis by Oliver (1986). This project will contrast the geographic distribution of illitization dates (1) within the Appalachian Basin from south to north, where the timing and character of the Alleghenian Orogeny may have been different; (2) between the Appalachian Basin and Illinois Basin along their divide at the Cincinnati Arch-Nashville Dome; and (3) between the Appalachian and Ouachita/Arkoma Basins along the strike of the orogen. Finally the petrology of the smectite to illite reaction in Appalachian shales should provide a marked contrast with the generally accepted model proposed from deeply buried cases like the Gulf Coast, where the chemical breakdown of detrital K-feldspar plays a major role.